Support for the Improvement of the University of Michigan Museum of Zoology Fish Collection

The University of Michigan's Fish Collection contains more than 3 million specimens and approximately 2,000 type specimens, making it the largest university-held fish collection in the country and the fourth largest fish collection in North America. This collection was one of the first to be catalogued on microcomputers, and it remains one of the leaders in its applications of computer databases for research and curation. Dr. William Fink, Curator of the collection, proposes continued curatorial improvements to the curation of the collection and an upgrade for the database hardware and software. New storage containers will assure the long-term preservation of large specimens, and an active program of visiting specialists will identify new accessions into the collection so that others may study them. New computer equipment will provide dial-in access by research scientists at remote sites. The proposed improvements will increase the research impact of this important collection. Systematists, ecologists, biogeographers, and investigators from a variety of other disciplines will benefit from the continued improvements to this valuable research resource.